Synoptic Study of UV Emission From Jupiter's Magnetosphere and Stratosphere in Support of the Galileo Mission, with Additional Studies in the Infrared

95-31586 A'Hearn Dr. A'Hearn and his Co-Principal Investigator, Dr. Timothy A. Livengood, will carry out ground-based thermal infrared (IR) observations of Jupiter and its environment, supporting and complementing an international ultraviolet (UV) observing program. Dr. Livengood is one of the two principal investigators of the international UV observing program. Both the IR and UV efforts will run in parallel with and complement the observations of Jupiter by NASA's Galileo mission, which is presently orbiting the planet and obtaining data. The ground-based thermal IR observations will be carried out with the thermal-infrared imaging camera at the European Southern Observatory. The wavelengths of the observations are chosen to coincide with emissions from a range of hydrocarbons. The objective is to understand better the auroral activity in the Jovian System, the transfer of material from Jupiter's satellite Io to the plasma torus surrounding Jupiter, energization of the torus plasma, seasonal response and photochemistry in the planet's stratosphere, and energization of day glow emission. ***